Recurring Games and Studies in the Design of Markets

Matthew Jackson Northwestern University SBR-9507912 The objective of this proposal is to model trading relationships. The proposal consistst of three related projects. The first project is a study of "recurring games"-- repeated play of the same game by different players who can learn by observing previous play. The focus will be on the way information affects the learning process. The second project is a study of the endogenous formation of trading networks in the absence of organized markets. The P.I. aims to identify the conditions under which efficient relationships form. The third project is concerned with the design of organized markets and the ways in which the equilibrium allocation depends on the rules governing trade. The goal of the research is to identify all the allocations that can obtained and the market designs that achieve them.